Collaborative Research on Ethnicity and Transition in Russia

ABSTRACT

Collaborative Research on Ethnicity and Transition in Russia
OPP-0082781 and OPP-0082715

This project explores the connections between ethnicity, post-communist transition, and trust in Yakutia (Sakha) and Tatarstan, two leaders in the Russian republics' campaign for sovereignty. Principal Investigators examine the implications of ethnicity as social capital for intra- and inter-ethnic relations among Yakuts, Tatars, and Russians. The project uses survey data, decision-making experiments, and elite interviews. The project promises to shed light on the role of ethnicity in periods of economic transition.